Design Sensitivity Analysis and Optimization of Nonlinear Structural Systems

This project will investigate the design sensitivity analysis for nonlinear structures for certain design variables. The variables to be considered are: structural dynamics, nonlinear buckling loads, general nonlinearity, and nonconservative aspects. Material variables are: elastic-plastic, viscoelastic, viscoplastic and related topics. The resulting algorithms will enable engineers to design better, more economical and safer structural systems.